A Priori Estimates for Linear and Nonlinear Partial Differential Equations

DMS-9970367
Yuan

This project concentrates on some estimates for linear and nonlinear
partial differential equations and their applications. It consists of
three main areas of research activity. In part one, the objective is
to investigate some applications and generalizations of doubling property
for parabolic equations. The emphasis is on the behavior near the boundary
of positive solutions of second order parabolic equations. In part two,
the goal is to derive some regularity estimates for fully nonlinear
equations with weaker (than concavity) condition. The a priori estimate
for fully nonlinear equations with concavity assumption is well developed.
The understanding of former would give some applications to
stochastic game theory, calibrated geometry, and nonlinear elasticity
theory. In part three, the aim is to study the best constant in an
isoperimetric inequality. There is a sharp isoperimetric inequality in the
Euclidean space with the standard flat metric. An interesting question is
the corresponding one in negatively curved space. An affirmative answer
would also give the sharp Sobolev inequality in the negatively curved
space.

The motivation of this project is to have some qualitative and quantative
information about our nature and society. Since partial differential
equations model and even describe many phenomena in our world. Estimates
for solutions of partial differential equations are what we need. Studying
the equations posed in this project is important for both practical and
theoretical purposes, and has broad applications in many fields, such as
heat transfer problems, chemical reaction, porous media, traffic flows,
biology, and economics.